REU: Intelligent Structures Group Research Experiences for Undergraduates Site

Psarris 9528330 In the past decade much progress has been made in developing high performance large scale parallel architectures. The development of fast restructuring compilers for the automatic parallelization of sequential programs requires efficient data dependence analysis techniques in order to obtain exact data dependence information. The proposed techniques in data dependence analysis fall into two categories, either efficient and approximate tests or exact and exponential. The proposed research will attempt to show, though, that exact data dependence information can be computed efficiently in practice. The GCD test and the Banerjee inequality are the two tests most widely used to detect data dependencies between pairs of array references inside loop nests. These tests are approximate in the sense that they are necessary but not sufficient conditions for data dependence and, therefore, they may introduce artificial dependences which limit parallelization. Their major advantages is their low computation cost. A recent study provided necessary and sufficient conditions for the accuracy of the GCD and Banerjee tests. This study has also led to the development of the I (Interval) test, an improved dependence analysis test. The I Test is more accurate than a combination of the GCD and Banerjee tests and is able to provide exact data dependence information in practice, unlike the classic tests, at no additional computation cost. The original work considered only the case of loops with constant loop limits. In scientific applications though, inner loop limits may be linear functions of the outer loop iteration variables (these iteration spaces are termed trapezoidal regions). This project develops an efficient and accurate dependence analyzer. The research has four objectives. The first objective is to derive conditions for the accuracy of the GCD and Banerjee tests in general trapezoidal regions and perform and empirical stud y of how often these conditions occur in practice. The second objective is to extend the I test to the general trapezoidal regions and to assess its performance benefits on a suite of benchmark codes. The third objective is an analytical and empirical comparison of the I test with all the other tests, such as the Omega test, Power test, etc. An analytical and experimental evaluation of all the data dependence analysis tests is essential to determining which tests should be performed in practice. The fourth and principal objective is to integrate the above research work and develop an improved dependence analyzer as a part of the Paraphrase-2 parallelizing compiler. It is expected that the completion of the proposed research will improve the understanding of data dependence analysis, demonstrate the effectiveness and practical importance of the proposed techniques, and significantly improve the state of the art in parallelizing compilers. By providing efdicient and exact dependence analysis techniques a number of compiler optimizations for high performance computer architectures can be performed in practice. ***